REU Site: The Nyanza Project--Interdisciplinary Tropical Lake Studies Associated with the International Decade of East African Lakes (IDEAL)

This award provides continued funding of The Nyanza Project, a Research Experience for Undergraduates (REU) site on the shore of Lake Tanganyika, Africa offering interdisciplinary research and training in paleoclimatology, atmospheric science, limnology, and biology for undergraduates, graduate students and secondary school teachers interested in tropical lake studies. The award provides support for administrative staff, academic mentors, and equipment at the site and allows for the participation American undergraduate students, graduate students, and secondary school teachers in the field. American students and mentors join their African counterparts for an interactive season of teaching and research at the field site.

This REU award weaves science, education, and cultural exchange into a rich tapestry. As such, it has the potential for opening doors for educational opportunity while it opens minds to a greater understanding of natural science. The Nyanza Project also promotes capacity building and technology transfer between American and African students and colleagues. In general, the Nyanza Project offers a unique educational and cultural opportunity to young scientists interested in the natural sciences.